US-Iceland Cooperative Research on: Protein Structure and Function

This proposal for cooperative research between Dr. Jay Fox of the University of Virginia School of Medicine and Dr. Jon Bjarnason of University of Iceland is approved by NSF under the US-Iceland Cooperative Science Program. The collaborative projects between Dr. Fox and Dr. Bjarnason both center around the broad topic of protein structure and function. The first project strives to understand the biological mechanism by which enzymes present in rattlesnake venom cause the severe local and systemic hemorrhagic in the victim. The researchers hope to learn more about the basic enzyme action and potential inhibitors to these enzymes. Dr. Bjarnason's laboratory is well-suited for isolation of these toxins and Dr. Fox wishes to examine his techniques for future use in his own laboratory. The second project involves the isolation and characterization of enzymes from fish which have an activity vs temperature profile shifted to lower temperatures. Understanding the structural basis for this activity shift may lead to development of enzymes which can efficiently function at lower temperatures.